Analytical Ultracentrifugation and Lipoprotein Structure

Analytical instrumentation method development will be supported. Methods for determining the molecular weight and density distribution profiles of heterogeneous low density lipoprotein samples. The optical system of the analytical ultracentrifuge will be further developed. The instrument is no longer manufactured, but the need for analytical centrifugation has increased. New, recombinant proteins must be thoroughly characterized and many types of proteins, including those with unusual charge distributions and modifications such as lipoproteins can not even crudely be studied with gel electrophoresis.